Mathematical Sciences: RUI: Geometry, Topology, and Number Theory at Williams

The research entails developing methods of geometric measure theory and calibrated geometries to the study of area minimizing surfaces. Other components of the project involving the CO-PI's concern problems in topology and number theory. The proposal is an RUI proposal and as such contains a component dealing with aspects of undergraduate education for which the talents of the investigators provide an injection of initiatives.